(QEIB) Accelerating Mathematical-Biological Linkages - Symposium

Our understanding of fundamental problems in the biological sciences requires new
approaches, new collaborations, and perhaps new ways of doing science that involve highly
quantitative and mathematical approaches. The mathematical and biological sciences are
ripe for efforts to blur the boundaries between mathematical/statistical and biological
disciplines. New partnerships, new training programs, and new ideas are needed to promote
research that integrates cutting-edge math and biological tools. A 1.5 day workshop is
proposed to bring together senior and junior investigators from the biological sciences
and the mathematical/statistical sciences. A keynote address and six talks will be given
on day 1 to highlight the opportunities and challenges at the math-bio interface. On day
two, a group of approximately 30 will work together for a half day to brainstorm ideas,
initiatives, and activities that will enhance math-bio linkages. The intention is that
this workshop will stimulate many other activities on campuses, at society meetings, and
within agencies that together should have synergistic effects in promoting the type of
research that will help solve complex problems faced by our society.